El Ingeniero Mentor and Group Study Program

This project is working to instill an interest in mathematics, science, and engineering careers in Hispanic high school students and enhance their mathematics and science skills. One hundred and twenty high school students are participating in the project activities. The students, after school, work in teams studying mathematics and science. Each student is assigned two mentors, an engineer and an engineering student. The mentors serve as role models and resource persons to provide the students with realistic information about careers in engineering. The students and their mentors meet as a group several times during the school year. The students also visit and observe their mentors at work, The project utilizes the methods and approaches of "El Ingeniero", a career education/mathematics and science enrichment program which has been identified as an exemplary program in "Changing America: The New Face of Science and Engineering", the final report of the Task Force on Women, Minorities, and the Disabled in Science and Technology.